A Conductivity Survey of Middle Valley

An extensive study of the electrical conductivity within Middle Valley on the Juan de Fuca Ridge will be conducted using a deep tow electromagnetic surveying instrument. Middle Valley is a segment of the mid-ocean ridge crest buried deeply by sediments and hosting a vigorous and well studied hydrothermal system. The conductivity measurements constrain two parameters related to hydrothermal circulation; the temperature gradient, and the porosity of the sediments. The study will also investigate the extent of the large sulfide ore bodies within Middle Valley. In addition, a controlled source will be used to extend the electromagnetic studies to greater depth.